Summer Symposium in Real Analysis XXVIII; June 7-13, 2004; Slippery Rock, PA

Abstract for the Summer Symposium in Real Analysis

During June 8-13, 2004, Slippery Rock University will host the Summer Symposium in Real Analysis XXVIII. Real analysis was formerly considered just a collection of facts and techniques. Recent results and directions of research have given new vibrancy to several classical areas of pure and applied analysis and to the newer arenas of dynamical systems and the study of fractals. Reasons for this are directly related to the increasing importance of research in classical real analysis across a broad spectrum of its subdisciplines. Summer research conferences such as the 2004 Slippery Rock symposium have been a primary vehicle for exchange of current ideas and directions of this research.

The Slippery Rock Symposium will highlight lectures by both leading experts and up and coming new researchers. Hour-long lectures will be given by Slawomir Solecki (University of Illinois), Udayan Darji (University of Louisville), and Erik Talvila (College of the Fraser Valley). There are also many slots for twenty-minute contributed talks and there is an evening research problem session. The symposium will culminate with the traditional banquet and the awarding of the Andy Award.